Mathematical Sciences: VIP/Virtual Integrated Prototyping for Epitaxial Growth

Simulation of the models and experimental studies of MBE, using in situ diagnostics (RHEED and PEO) and ex situ microscopy (STM), will be used to determine the effects of strain, flux rates and temperature on surface morphology. Modeling at different levels, analysis of the connections between levels, and experimental validation are important for determination of the essential growth modes and their rates. Finally we will develop a control method based on a new continuum model (the "island dynamics model"), using the in situ diagnostic (RHEED) signal as the measurement variables and flux rates and temperature as control variables. An important general result of this project will be a methodology that can be followed for a wide class of thin film growth problems. In particular, for MBE we will determine the instrumentation sensitivity required for control of nanoscale morphology. Specific products of this project will include a set of computational tools capable of providing parameters for a growth recipe, and a real-time control algorithm for the AlSb/InAs prototype system. Funding for this activity will be provided by the Division of Mathematical Sciences, the MPS Office of Multidisciplinary Activities, the NSF Engineering Directorate, and by DARPA.